Center for Astrophysical Science and Technology

The CREST project at Florida A&M University will integrate education and research in astrophysics and will produce new knowledge and enhance the research productivity of the faculty involved. In addition, a central objective is to increase the number of African-American Ph.D.s in Astrophysics and Astrochemistry. The Center will support collaboration between the FAMU Physics and Chemistry departments and will facilitate the startup of a Ph.D. program in Chemistry. The program will have a Center component and 3 research subprojects in the field of Astrophysics. The Center will also establish a laboratory astrophysics program, which has both a new undergraduate minor and a research area at the Ph.D. level.